Chronic Central Neural Control of Blood Pressure

The regulation of blood pressure is a complex process, involving the integrated action of many systems. The central nervous system is a key component of this regulatory process, and one site in the brain which has received considerable attention in this regard is the nucleus tractus solitarius (NTS). This nucleus is the site of termination of the vast majority of baroreceptor afferent inputs, and is therefore the first site in the central nervous system involved in the mediation and integration of the baroreceptor reflex. Bilateral destruction of the NTS in rats leads rapidly to severe hypertension, resulting in death within several hours. The hypertension is caused by increased sympathoadrenal activity and increased release of vasopressin into the circulation. In contrast, it has recently been observed that if rats are pretreated to prevent the acute phase of this hypertension, they survive and chronically maintain a normal resting blood pressure, although baroreceptor input and integration should be totally abolished. The present proposal is designed to examine the mechanisms by which normal resting blood pressure is restored in rats with bilateral lesions of the NTS. The first group of experiments is designed to verify that baroreceptor reflexes are abolished in rats with chronic lesions of the NTS. Following this, experiments will examine whether sympathetic activity and vasopressin release are chronically enhanced in rats with NTS lesions. Experiments will then address (a) how sympathetic activity and vasopressin release return to normal following NTS lesions or (b) how normal blood pressure is restored in the presence of chronically enhanced sympathetic outflow and vasopressin release. Thus, these studies will examine the ability of the cardiovascular system to adapt to disruption of the central neural control of blood pressure caused by destruction of the NTS. It is expected that these studies will provide important new information on the regulation of blood pressure exerted by the brain, and the integration of the many systems normally involved in the regulation of blood pressure.